MRI: Acquisition of Apparatus to Study the "Expression" of the Parental Brain

The parental brain represents a significant opportunity to understand the manner in which inherent neuroplasticity, the brain's reserve for change and adaptation, can be expressed at many different levels. The PI, Craig H. Kinsley, is interested in acquiring a related suite of neuroscience equipment that can focus on detailed and precise genetic expression questions, to provide his students, and those of seven colleagues, with outstanding research experiences. This request will enhance their research, connecting previously NSF-supported detailed behavioral observations, and precise neuronal protein and histological techniques, with single-cell proteomic analyses using the Zeiss Axiovert PALM-Bioquant system and a suite of Qiagen qRT-PCR equipment. The current set of microscopes in the PIs' labs are all upright platforms, whereas the requested microscope is an inverted microscope, thereby increasing and enhancing their technical abilities significantly (including cell culture and live, small animal [e.g., C. elegans; roundworms] capabilities).

The teams of investigators plan to perform laser micro-dissection and micro-capture from animal nervous tissues, precisely removing minute pieces of individual neurons/cells for pure, uncontaminated genetic analyses, thereby allowing observation of neuronal and cell gene-expression patterns in a heretofore unparalleled manner, expanding their already detailed behavioral and regional brain analyses and providing their students with multi-disciplinary opportunities for study and collaboration, both here and abroad. This broad approach will bridge basic research with the latest technologies, and allow them to: conduct more sophisticated studies on neural regulation of the parental brain; obtain more reliable data from other cellular realms; increase the number of studies performed; and increase the number of undergraduates involved, including those reluctant to use rats or their tissues. The equipment will be used by faculty and students from: Randolph Macon College (Dr. Lambert); Virginia Union University (TBA); Marshall University (Dr. Bardi); Rhodes College (Dr. Gerecke); Longwood University (Dr. Franssen); the University of Sao Paulo, Brazil (Dr. Felicio); and for teaching and research by other UR investigators (Drs. Radice, Telang, and Warrick).

This equipment represents a significant advance in understanding the development of the parental brain, across multiple species. Presently, their talented undergraduates can embark on sophisticated questions related to brain and behavior. Currently, their equipment allows them to conduct complementary multiple antigen-labeling studies of maternal and paternal brains and other tissues faster, more efficiently, and more reliably (an especially important advantage for students seeking to complete an experiment in one+ semester). The current MRI request will add a significant capability to the scientists' work with students, one that substantially increases the students' understanding of neural events, and one in which more students are interested: proteomics. Last, the expanded research opportunities will support their continued efforts to do excellent research, expand general interest in and understanding of science, and educate and train many students, including more diverse students, which in the past (and currently) have included significant numbers of women and under-represented minorities.

The PI and his colleagues are passionate advocates for the neurosciences and complementary hands-on experiences to enhance the academic experience. Scores of their undergraduates have gone on to become assistant and associate professors of neuroscience and related fields, postdoctoral fellows, predoctoral fellows, graduate and medical students, and co-authors.